Mathematical Sciences: Linear and Quasilinear Inverse Boundary Value Problems

Pi: Sun DMS-9501401 This proposal deals with inverse boundary value problems for linear and quasilinear elliptic partial differential equations and systems. Research will be focused on uniqueness questions for inverse boundary value problems for elliptic equations of second order, the quasilinear anisotropic conductivity equation, the 2x2 first order elliptic systems and the elasticity system. The proposed research represents an effort in exploring new technologies of deducing as much information as possible about the electromagnetic, elastic or thermal properties of a body from measurements made at the boundary of the body. Results of this study would be particularly useful in designing diagnostic tools for medical and biological sciences, in detecting land mines and other underground metal objects and in testing nondestructively materials with possible cracks.